A Natural History of the Senses

A NATURAL HISTORY OF THE SENSES is a five-part series to be produced by WETA fornational PBS broadcast in the 1993-94 season. The series is to be adapted from the best- selling book of the same title. Its author, Diane Ackerman, will present the programs and collaborate with the producers throughout. Each program will focus on a single sense: smell, touch, taste, hearing and vision respectively. Each will explore: how the world is sensed by animals and humans, including the evolution of the sense; what is perceived; and how human beings reconstruct and recreate their sensory worlds, through cuisines and perfumes, music, sculpture and painting. Shot on location around the world, these documentary films will incorporate viewpoints from anatomy, physiology and neurochemistry, experimental and perceptual psychology, cultural anthropology, literature, art, music and history. Compelling stories and illustrative vignettes and precise graphic animation will arise from rigorous research, in collaboration with a board of advisors. By unifying material from science and the arts and humanities, the series will reach a general audience. Viewers will be awakened to a new awareness of the range and power of their senses. Companion materials for schools will extend the series to the formal learning environment and will motivate further study.